UIG - Partnership in Engineering Education in Mechanical Engeering Design

This project initiates a cooperative teaching effort between the Mechanical Engineering Department of the University and an industry. It is to enhance the relevance and timeliness of design courses. It brings practicing design engineers into the classroom as lecturers and takes the students into the facilities of the industry. The students get hands-on experience with the latest technology. Specific areas of interaction include provision for design projects and instruction in computer-aided design. Practical experiences and case studies are concerned with welding technology, non-standard structural materials, and quality engineering.